Nuclear Magnetic Resonance Spectrometer Acquisition

The aim of this project was twofold: to enhance spectroscopic capabilities afforded by the chemistry department for the education of chemistry and chemical engineering students, and to develop and implement summer workshops for regional high school science teacher to sharpen their knowledge, interest, and enthusiasm for chemical science so that they would function more effectively in the classroom. In this context, the institution acquired a nuclear magnetic resonance spectrometer to implement their aims. The instrument has been the focus for the development of: new chemistry experiments for undergraduate students developed by five faculty members and incorporated into existing laboratories, a new spectroscopy course which included other recently acquired instrumentation, increased opportunities for undergraduate research, and summer workshops for high school science teacher which included modern spectroscopic methods as an integral component. This project enhanced the quality of science education for the undergraduates and stimulated the interest of regional high school science teacher in the chemical science, an interest they have transmitted to their students. The institution contributed to the project in an amount equal to the NSF funds.